NSF-ANR: Biophysical Underpinnings and Regulation of Hair-Cell Mechanosensitivity in the Inner Ear

The auditory system is remarkable in that it can detect sound levels across seven orders of magnitude. It does this by having the ability to amplify the signal when it is of low intensity and attenuating larger sound levels. In addition, hearing organs separate complex sounds into their individual frequency components. Part of the processes responsible for both the filtering and amplification resides in the sensory hair bundle which is the part of the sensory cell converts a mechanical stimulation into an electrical signal. Although the biophysical properties associated with the amplification and filtering are well described, the underlying molecular mechanisms remain unclear. This proposal tests a novel mechanisms that suggests the stereocilia membrane regulates the sensitivity and kinetics of the the mechanotransducer channel and that this active modulation of the membrane underlies the amplification and filtering process. We use a novel combination of electrophysiological, imaging and computational tools to test our hypothesis.

Auditory sensitivity and dynamic range are maintained by an active process that serves to filter and amplify mechanical stimulation. Some component of the cochlea amplifier resides within the sensory hair bundle involving active mechanical changes to the hair bundle involving channel gating. The biophysical properties of the hair bundle are well-defined by a Hopf-bifurcation, however the molecular underpinnings of this process remain controversial. Recent data demonstrate that the hair bundle stereocilia have a membrane that is actively regulated by a series of energy-dependent membrane flippases and energy independent scramblases, with one scramblase being mechanically sensitive. This membrane regulation has the characteristics needed to fulfill the requirements of a Hopf-bifurcation and have the potential to regulate hair bundle mechanics and mechanotransduction to create amplification and filtering. This proposal will use novel imaging, electrophysiological and computational tools to test this hypothesis.